L2 Holomorphic Functions on Non-Compact Manifolds and Related Topics

Shubin proposes to study L^2 holomorphic functions and L^2 Dolbeault cohomology on non-compact manifolds with boundary. He will use Von Neumann algebra techniques to further develop the L^2 Oka-Grauert theory on complex manifolds M with pseudoconvex or q-convex boundary bM admitting a holomorphic action of a Lie group G on M with a compact quotient M/G. He plans to investigate existence of non-trivial L^2 holomorphic functions on M for concrete Lie groups G which act freely on M with compact quotient M/G. In this way it might be possible to describe the class of groups G for which the existence of non-trivial L^2 holomorphic functions is guaranteed. The situation when there is no group action will be also considered with the purpose of finding geometric conditions which guarantee existence of non-trivial L^2 holomorphic functions. Techniques from several complex variables are similar to those appearing in linear and non-linear partial differential equations that describe cosmological models (through twistors) and free boundary problems, providing models for plasma in tokamaks by methods of Helmholtz and Kirchhoff. Investigation of these models can lead to important discoveries in thermonuclear reactions which are our main hope for the future source of cheap energy.